CAREER: Towards Molecular Optical Data Storage Using Luminescent Inorganic Compounds with Photochromic Quenchers

The Advanced Materials Program in the Division of Chemistry makes this Career award to Bowling Green University. With this award, Professor Felix Castellano will design, synthesize and characterize photochromic luminescent quenchers based on transition metal complexes dispersed in polymer matrices. Metal-to-ligand charge transfer (MLCT) excited states using a series of Ru (II) and Re (I) compounds in polymer matrices will be used for a variety of data storage applications such as write-once-read-many systems and read-write-erase systems. One- and two-photon photochemical and photophysical processes of these polymer composites will be determined to evaluate potential photonic device applications. Development of new inorganic chemistry laboratory course in partnership with a private science center will provide new education and training opportunities to students. Planned science exhibits will reach a large segment of population including students at different educational levels.

Photochromic luminescent quenchers based on Ruthenium and Rhenium complexes dispersed in polymer matrices will be designed, synthesized and characterized. Metal-to-ligand charge transfer (MLCT) excited states of these compounds in polymer matrices will be used for a variety of data storage applications. One- and two-photon photochemical and photophysical processes of these polymer composites will be determined to evaluate potential applications in photonic devices. Development of new inorganic chemistry laboratory course in partnership with a private science center will provide new education and training opportunities to students. Planned science exhibits will reach a large segment of population including students at different educational levels.